EAGER: Exploration of Data-Driven Methods for Cyber Manufacturing

This EArly-concept Grant for Exploratory Research (EAGER) project will investigate the knowledge and data-driven and cyber-enabled tools needed to link design and manufacturing, thereby enabling a cyber manufacturing marketplace that identifies the on-demand manufacturing capabilities necessary for rapid realization of product designs. Such a marketplace can democratize access to “know-how” and means of production on a massive scale, by seamlessly connecting designers with manufacturers in a broad platform of regional and global supply chains and democratizing access to manufacturing capabilities without compromising manufacturers’ “know-how” and trade secrets.

To realize this impact, it is necessary to (1) create data-driven methods to harvest knowledge of manufacturing capabilities that can transform a computer-aided design (CAD) into the desired physical product, and (2) create methods to efficiently search for this knowledge through the cyber infrastructure. The project hypothesizes that: (i) computing machines can learn the manufacturing capabilities required to transform a CAD model into the desired physical part from available design and manufacturing data, and (ii) efficient cyber-enabled search of the required manufacturing capabilities for a part design can be realized through statistical similarity-based search methods. The hypothesis will be tested through innovative and convergent data-driven approaches that utilize expertise in computer-aided design, manufacturing science and technology, and machine learning.